REU: REU Site: Physiology Minority Student Summer Research Internship

This is a Research Experiences for Undergraduates project. It will provide research experiences for ten students at Michigan State University. Students will participate in projects involving physiology, neurobiology and biophysics.